Computer-Controlled CCD Astronomy at Ursinus College

The college recently completed plans for the renovation of its physical sciences building, including a new observatory with an adjacent classroom/computer lab. It also changed its astronomy and astrophysics curriculum to offer students more experience with modern observational astronomy. This grant allows the pruchase of CCD cameras, computers, computer-controlled telescopes, and photometers, which expand and enrich the teaching of modern astronomical techniques.